One-Day Symposia on the Theory of Computing (Spring and Fall 1988-1989, New York)

Columbia University holds two theory days each year, one in the spring and one in the fall. Each theory day consists of four invited talks, an hour each in duration. Approximately 125 people attend each theory day. Most of the participants are from the New York City area. Current reserach results are given rapid distribution. There is ample time for discussion. Research liasons are forged and renewed.